Magnetic Resonance Under High Pressure

Dr. Chan plans a program of research which exploits a novel experimental technique developed in his laboratory. It combines a diamond anvil high pressure cell and microwave technology in high pressure magnetic resonance experiments. He intends to investigate the effect of pressure on molecular properties of photoexcited triplet organic molecules, such as electronic structure, spin-spin and spin-orbit coupling and dimeric interactions, and to employ pressure as a well-controlled experimental parameter in elucidating dynamical processes in molecular crystals. Magnetic resonance will be detected optically and both steady-state and coherent transient methods, including the newly developed spin-echo envelope modulation technique will be employed. This work is important because it involves the development of a new technique to perform experiments to examine the effect of high external pressure on the structural and dynamical aspects of organic crystals. The technique opens up a new area of research in magnetic resonance.